The Effects of Networks on Institution Selection by Foreign Doctoral Students in the U.S.

The goal of this study is to provide input to policymakers on the factors influencing location choice for oreign doctoral students studying in the U.S., with specific emphasis on the effects of networks.

The main hypothesis is that networks have an effect in the institutional election and this hypothesis will be examined using three different methods: (1) an empirical analysis utilizing random utility models using data from SRS Survey of Earned Doctorates, (2) web pages of university S&E research laboratives will be examined to test whether nationality of the lab directoris a factor influencing institution choice, (3) focus groups will be formed in order to inquire about participants program selection processes and if networks affected their decision.